SSC: "Summer Science Camp"

SSC-9450406 U of Houston Houston, TX Bennett, Jennie "Summer Science Camp" The University of Houston Summer Science Camp is an endeavor of the university's Bridge Program designed (1) to address the impending shortfall of technology trained workers in the United States by encouraging minority students in the Houston area to enter careers in the sciences, engineering, and technology and (2) to enhance these students' proficiency in mathematics and the sciences so that they can successfully complete university and college programs in these disciplines. The Summer Science Camp Program seeks to provide minority students of intermediate academic ability-- students who, without strong encouragement, would otherwise not enter a university--with the tools and the encouragement necessary for them to pursue such educational opportunities. In the Summer Science Camp students will be trained in research techniques and study skills, writing skills and, given hands-on experiences in conducting laboratory experiments from several scientific disciplines. Teachers from area public schools will collaboratively plan chemistry, physics and mathematics classes with Houston Community College-Northeast College instructors and University of Houston professors. Classroom activity projects and lessons will be team-taught by chemistry, physics and mathematics university and community college professors. Instructors will mentor students, working in classrooms and labs, and making field trips to enhance their understanding to reinforce the goals and objectives of the National Council of Teachers of Mathematics Curriculum and Evaluation Standards and revised Texas State Curriculum for Mathematics and Science. TexPrep materials from the University of Texas-San Antonio will be integrated into the summer camp curriculum. Students will be exposed to scientifically and technologically based careers through interaction with minority scientists and engineers. undergraduate students wi ll escort students from class to class. After the academic activities, students will participate in recreational activities such as swimming, bowling, rap sessions (discussing topics relevant to teenagers), and the like, that will be planned and supervised by undergraduate students. One hour and a half will devoted to study time so students can complete homework assignments for the next day. Participants will be residentially housed at the university from Sunday evening through Friday afternoon, spending the weekends at home. Graduate students will serve as mentors and role models for participants. In addition to the responsibilities mentioned above, undergraduates who are majoring in scientific and engineering fields at the university of Houston and who are themselves minority students mentors, tutor (if necessary) and supervise recreational activities for Summer Science Camp Program students. ***